Better Freight Flow Data for Analysis and Planning

EIA-0138998-Genevieve Giuliano-University of Southern California-SGER: Better Freight Flow Data for Analysis and Planning

This grant will support preliminary explorations in integrating 10 datasets, some digital and some paper, related to the modeling of the flow of freight carried by trucks, rail, and ship in the greater Los Angeles area. The collaboration will be between information scientists and experts in transportation planning and policy and will involve the collaboration of several government agencies.